VPW: Pattern Formation Phenomena in the Spreading of Fluids (Materials Science)

Pattern formation phenomena occur universally in nature. The proposed work focuses on one dimensional pattern formation which occurs in wetting, with the objective of understanding the spreading of a fluid meniscus coated by a surfactant monolayer. Wetting dynamics are to be studied by microscopic imaging of a vertical meniscus to view the motion of the three phase contact line as it moves in response to an applied thermal gradient. Quantitative analysis of patterns forming in the spreading front of the pure fluid and in the monolayer is used to elucidate the mechanisms underlying the instabilities in the wetting process causing the pattern growth. The work proposed on the spreading of a fluid contaminated by a surfactant is relevant to technologies such as oil recovery, chemical spraying, and coating processes. In addition to contributing to the understanding of a complex wetting problem, this work may further the understanding of the deposition of an organic layer on an inorganic substrate, as is done in the Langmuir-Blodgett process. This project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigator's enhanced visibility as a role model on the host campus. The proposed activities which contribute to the second objective include: the development and teaching of a new course in the Princeton Materials Institute; initiating a program to introduce lower level undergraduates to scientific and/or engineering research as a career option; and a seminar series on organic materials which includes several women speakers.